Hepatcyte Growth on Fibronectin Versus RGD

MCB 9509600 Linda Hansen The purpose of this research project is to characterize cell cycle progression in hepatocytes cultured on the extracellular protein fibronectin on the cell attachment sequence, arg-gly-asp, found within fibronectin. At different points in the cell cycle cells, particularly hepatocytes, will alter their preference as to the binding site within the extracellular matrix. By identifying which receptors are involved in adhesion, and the point at which cell cycle progression diverges on these substrates it will be possible to design future studies into defining the exact signaling mechanisms involved in extracellular matrix mediated growth control. %%% The project will investigate the mechanism by which cells adhere to a substrate and how the substrate regulates the rate at which cells divide. ***